3-Day Workshop on Carbon-Free Deep-Ocean Power Science for the Pacific Rim to be held in Honolulu, HI on February 23-26, 2014

The proposed 3-day worshop (to be held in Honolulu, Hawaii, February 23-26, 2014) focuses on the combustion of methane hydrate and CO2 sequestration under the deep-ocean condition, where high-pressures and high-temperature combustion takes place involing multiphase fuel-oxygen-nitrogen environment. It will have participation from US and Pacific Rim researchers while involving 5 US graduate students and/or post-doctoral fellows. The requested fund is used exclusively for supporting these students. The educational impact and the benefit of preparating next generation researchers and engineers are significant.